Dissertation Research: Ethnographic Study of Values in Career Motivation

This project supports a cultural anthropology student investigating the role of values in the career choices of nurses in the Chicago area. The project will investigate how female student and professional nurses conceptualize and talk about their values and relate their values to their reasons for entering, remaining in, and leaving nursing. Using the methods of intensive interviewing and textual analysis of transcripts, the student will use computer text management programs to identify and analyze key concepts and terms relating values to career choices. This research is important because the relation between values and decisions is assumed to be direct and important, in that decisions flow directly from values. Research using powerful computer methods of analysis such as used here can help reveal the structure of the relationship and help understand job satisfaction in general, and help identify ways to make nursing a more attractive profession in particular.